Distribution of NSF-Funded Education Results Through ASEE Regional Meetings

This project will support the dissemination of curricular developments in engineering by establishing workshops at three A.S.E.E. regional meetings to be attended by engineering faculty from two and four-year institutions in each region. Successful projects will be presented by principal investigators in an interactive format under the A.S.E.E. auspices. Evaluating of the workshops with respect to their effectiveness in promoting curricular change will be carried out by the A.S.E.E. over the six month period following the regional meetings. Results of the project will be published in A.S.E.E. publications.